Constituency Democracy in the Progressive Era: Referenda and House Roll Call Votes

In this investigation the researcher assesses how the modern, American democratic state is founded at the beginning of the twentieth century on the basis of legislative policies initiated at the state and federal levels of government. Grass-root referenda votes are collected and used as a measure of constituency issue positions and are examined in relation to subsequent roll call voting by House members on the same or similar issues. The analysis of a wide range of issues, including welfare, government management, and civil rights policies, illustrates that House members' responses to the cues of their constituents, mediated by partisan competition and conflict, do have the effect of transferring progressive social policies first proposed and implemented at the state-level to that of the federal-level. While many view the New Deal as the beginning of the modern era, this research reveals how the rich multitude of state-level legislation considered in the earlier part of this century provides crucial precedents for modern, federal policy programs. Not only do we gain a better understanding of how Congress operates in these decades, but the centrality of legislative and representative processes for the establishment of progressive policies is evident, balancing the more usual attention directed to the role of courts and parties in this time period. In addition to integrating a relatively neglected time period, the Progressive Era, into the study of Congress and development of our modern state, this project also introduces a new method for studying policy congruence in general between the state and federal levels by means of grass.root referenda votes. As a result of this research, the applicability of using referenda votes in studies of contemporary congresses will be apparent, thereby opening up new perspectives for investigating policy connections between state and federal levels.